A Balanced Lamination Concept for Dimension Lumber

This project will investigate ways of orienting layers of low quality lumber to produce a higher quality product than exists in any layer. In particular the idea is to reduce warping of the overall piece of lumber. This will mean a better utilization of the lower grade portion of a tree.